Postdoctoral Fellowship in Studies in Science Technology andSociety

Dr. Lowen is working under this postdoctoral fellowship at Johns Hopkins University with Professors Stuart W. Leslie and Robert Kargon on "Postwar Funders of Academic Science and Engineering: The Relationship between the Federal Government, Industry, Universities and Developments in Science and Technology." As part of the training component of this postdoctoral fellowship, Dr. Lowen will study the development of technologically-oriented regions, focussing on the interaction between universities,local and state governments,and industry. For the research component of this fellowship, she will extend her previous work on the relationship between academic science and engineering and government funding agencies, particularly the Office of Naval Research and the Atomic Energy Committee. Her dissertation study on "Defense, Industry and the University: The Origins of the Relationship and its Impact on Academia, 1938-64," focussed on the academic side of this relationship. With this fellowship, she will concentrate on using the wealth of governmental sources available in the Washington, D. C. area to examine the government viewpoint of these developments. These studies promise to greatly enhance our understanding of the intricate and critically important relationships among science and technology, universities, and governmental and industrial research sponsors.